WORKSHOP: Workshop in Wavelength Division Multiplexing in Free-Space Optical and Optoelectronic Systems to be held on February 4-7, 1996 in Taos, New Mexico

9631834 Marchand The PI proposes to hold a workshop on the topic of wavelength division multiplexing (WDM) in free space optical systems, particularly processing systems that use smart pixel as the processing element and optics for the interconnection. The goal of the workshop is to bring together members of the scientific and engineering community that work in systems and device related areas such as free space optical systems, smart pixels, optoelectronic devices, and wavelength division multiplexing to discuss and access the potential impact of WDM on free space optical architecture and related applications. ***